The Palomar-Las Campanas Observatory- NOAO (PLCON) Open Cluster Survey

Phelps 9800126 Open star clusters are unique laboratories for investigating a wide range of fundamental problems in astrophysics, yet only a small fraction of the ~1200 cataloged open clusters have ever been observed photographically or photoelectrically, let alone with state-of-the-art charge coupled device (CCD) detectors. The potential wealth of knowledge obtainable from open clusters, therefore, remains largely untapped. For the first time in history it is possible technologically to observe the majority of the known population of open clusters. Research conducted under this NSF award represents the first step toward providing the first comprehensive, systematic determination of fundamental parameters(e.g. reddening, distances, and ages) for the majority of the known open clusters in the Milky Way.